Networks for Prediction in Spatial Control

This research project develops new artificial neural network concepts for environment related prediction and spatial control that are inspired by the hippocampal function. Hippocampus is an enfolding of cerebral cortex into the lateral tissue of a cerebral hemisphere. The research combines a theory of brain development and a theory of hippocampal function with recent developments in statistical decision theory based upon recurrence and robustification of artificial neural networks. The major focus of this project is on a study of hippocampally inspired recurrent neural structures, adaptively developed connectivity, robust neural operations and mapping, and information-theoretic approaches for accessing and eventually reducing the computational demands on the networks. The combination of biological and engineering research produces a self re-enforcing, positive feedback, and the robust theory leads to a deeper understanding of the function of hippocampus, and new concepts for better implementations of spatial control based on robust decision theory.